Doctoral Dissertation Research in Sociology

This dissertation proposal aims to develop a better understanding of women's movement into management positions in corporate-government relations. This study provides a way to study an occupation whose gender composition is in transition and a basis for understanding a transition in the character and function of corporate-government relations. The student will investigate the behavior and organization of corporate political action committees (PACs). The study will facilitate understanding changes in the character and function of corporate-government relations and their relationship to the political goals of corporations. The student will interview in depth PAC officials and men and women in corporate-government relations. A survey based on the interviews will be mailed to government relations officers in 309 corporations.